Molecular Structure and Function in an Undergraduare Curriculum (Proof of Concept)

Biological Sciences (61)

A student-focussed, guided inquiry approach to teaching concepts of molecular structure and function is being developed using accurate, three dimensional physical models of protein structure. The physical models provide students with a solid base upon which to construct their knowledge of the molecular world. This approach is being tested both in long-standing introductory biology and chemistry courses, where these models and accompanying computer visualization tools will be used to complement and extend existing courses, and in a new upper level biochemistry course specifically designed around this pedagogical approach. The pedagogical model employed enables students to discover and construct their own knowledge by relating abstract concepts as much as possible to real world examples. Students use the physical model to translate the abstract concept of a protein into something tangible and tactilely significant. Students then formulate their own questions regarding the structure and functional features of a model protein and, in a guided but open-ended laboratory experience, explore the answers to their questions.